United States Participation in the International Union of Physiological Sciences (IUPS) and the International Union of Biochemistry and Molecular Biology (IUBMB)

This action funds the payment of US dues to 2 international scientific unions in which US participation is ongoing.